Problems in Combinatorial Pattern Matching

Combinatorial pattern matching encompasses a large class of problems that are now emerging in several application areas. The most important application areas are molecular biology where a myriad of pattern-matching problems occur, and test processing in the larger context of storing, manipulating, searching, and information gathering from large collections of texts. For example, the need for approximate pattern matching is expected to grow as more and more text is being read by OCR (Optical Character Recognition) devices which often make errors. This project studies fundamental issues in combinatorial pattern matching that are motivated by these two application areas. Theory and practice are interleaved in this project with practical problems motivating most of the theoretical questions and, in at least two cases, the other way around. The potential contributions of this work include the identification, abstraction, and unification of important problems in this area, and the development of algorithms and software tools for their solutions.